Microfabrication of Contoured Surfaces by Electroplating

The objective of this research is to develop a generalized fabrication technique for manufacture of three-dimensional contoured surfaces based on a process which uses thin polymeric films to precisely control local rates of electoplating and electrodissolution. The process provides a generalized method of transcribing any two-dimensional optical density map into a three-dimensional surface contour. The research will include experimental and theoretical investigations aimed at development of improved films used in this process, computer generation of the optical masks used to contour the films which in turn form a contoured final surface by means of electroplating or electrodissolution through the film, and extension on the method to include electroless plating and electrodissolution (of silicon) going beyond earlier electroplating work.